NUE: Integration of Nanotechnology into the Engineering Education at Oregon State University

This Nanotechnology Undergraduate Education (NUE) program entitled, "Integration of Nanotechnology into the Engineering Education at Oregon State University", under the direction of Dr. Milo D. Koretsky, is being funded by the Directorate for Engineering (ENG), Division of Engineering Education and Centers (EEC). The proposed project will develop a Nanotechnology Processes Option in the Chemical Engineering (ChE) Department at OSU and develop a survey course (ENGR 211) within the College of Engineering (CoE) that is broadly available to all engineering undergraduates at OSU.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education (NSEE) program solicitation, NSF 05-543, Nanotechnology Undergraduate Education (NUE) component.